Acquisition of a Shared Ultracentrifuge

The Department of Environmental, Population, and Organismic Biology requests 50% of the necessary funds to purchase an ultracentrifuge capable of performing macromolecular separations (Sorvall OTD 60B). The ultracentrifuge will serve the needs of three separate research laboratories. Two of these laboratories require an ultracentrifuge for molecular systematics, and particularly for the isolation of chloroplast DNA from whole cells. A third laboratory requires an ultracentrifuge for characterizing polyribosomes that may be important in anabolic processes that control dormancy in invertebrates and for the preparation of purified filamentous actin that may perform regulatory functions in catabolic processes related to invertebrate dormancy.